Electronically Linked Cluster Networks

9708107 Datta This FRG project is multidisciplinary, involving elements of Chemistry, Physics, Engineering and Materials Science, to address research on Linked Cluster Networks-2D lattices consisting of nm-sized gold clusters electronically linked by pi-conjugated organic molecules. The project includes research to explore and exploit unique properties of LCN's for device applications such as interconnects, opto-electronic devices and sensors. Three areas will be emphasized(i)self-assembled LCN's that can form the interconnect networks for high density integrated circuits, (ii)programmable LCN's whereby the conductivity in selected regions can be increased by orders of magnitude by doping and controlled with an external optical signal, (iii)exploration of a new class of nanoscale LCN-based chemical sensors whose conductivity can be changed by orders of magnitude in the presence of particular chemical species--because of their high surface to volume ratio these chemical sensors are anticipated to be have speed and sensitivity advantages. The project is co-supported by five NSF programs, and the MPS OMA(Office of Multidisciplinary Activities). %%% This project addresses forefront research issues in an interdisciplinary area of science and engineering having high technological relevance. The research will contribute basic knowledge at a fundamental level to important aspects of materials and devices, and will provide improved understanding and a basis for designing and producing improved materials and structures for devices of the future. An important feature of the program is the integration of research and education through the training of students in a fundamentally and technologically significant area. ***